Paleoecological Tests of Climate Model Simulations for the Past 18,000 Years in Eastern North America

The comparison of paleoclimate data with General Circulation Model (GCM) simulations of past conditions on earth provides one of the best methods to test model accuracy and sensitivity. Important discrepancies exist between the results of the models and the existing data. One prominent discrepancy is in the southeastern US during the early Holocene. For that time, GCMs suggest that climate was much warmer than is observed in the existing paleoclimate data. The goal of this research program is to resolve this discrepancy by reanalyzing the existing paleoclimate data from this region and provide new, independent measurements of past conditions. The research is important because it will help to confirm the accuracy of the NCAR GCM, a model that is used quite extensively to predict the future climatic effects resulting from the introduction of greenhouse gases into the atmosphere.